Research in Model Theory

Baldwin proposes work on three topics in model theory: abstract
elementary classes, generic expansions of fields, and the
preservation of stability under expansion by naming predicates.
The last two are in some sense dual. The twenty year old search
for a bad-field tries to construct a sufficiently generic subgroup
of the complex numbers that omega stability is preserved. Both
refined model theoretic and algebraic tools are essential. In the
other direction Baldwin is exploring with Baizhanov, the most
general conditions under which can hope to preserve stability when
a subset is named. Baldwin has been writing a monograph
summarizing the current state of `Morley's theorem' for Abstract
Elementary Classes. This monograph, tries to clarify and organize
the general work in this topic, underline the connections with
both Zilber's work on complex geometry and the `Hrushovski
construction, and lay the foundation for a more general stability
theory in this context.

The general perspective of logic in understanding the foundations
of various mathematical topics has provided in Baldwin's work
links among fields as diverse as database theory (computer
science), random graphs, abstract algebra and complex analysis. In
many cases the role of logic is place limits on what can be proved
and direct research into more productive endeavors. Baldwin has
served as a link between the logic and mathematics education
communities for the last fifteen years. He is currently director
of the Office of Mathematics Education at UIC. He aims to provide
future teachers with a profound understanding of fundamental
secondary school mathematics. A teacher with profound
understanding of school mathematics is not only aware of the
conceptual structure of secondary mathematics, but also
understands the common strategies that students use to solve
problems along with common student misconceptions. A background
in logic is invaluable in helping future teachers develop the
ability to communicate mathematics clearly.